Does Involving Girls as Designers Result in Girl-Friendly Science Education Software? Comparing Processes and Outcomes of Same-Sex 5th and 8th Grade Girl and Boy Design Teams

OBJECTIVES: Virtual environments are increasingly being called upon to advance science learning.
With possibilities for interactive multimedia displays and learner customization, these environments hold
great promise. But are these environments friendly to girls? Computer games, designed by young men for
boys and young men, epitomize technology's exclusion of girls, their interests, and values. Less obvious
but more devastating, this technological estrangement exacerbates girls' lack of interest and self confidence
not just in computers but in science. Technology itself and even the design of technology-enhanced science
experiences may disadvantage girls, turning them away from SMET instead of engaging them. Experts
urge more women and girls to become involved in software and hardware design, to begin to transform
computer culture. The ihInvolving Girls as Designerslg (IGD) project will look at what can happen when
girls design their own technology-enhanced science learning experiences. Do girls and boys approach the
design process differently? If so, what are the characteristics of a girl-friendly design process? Do all-girl
design teams create products that are more appealing to other girls than products designed by all boy
teams? Are gender differences more strongly polarized by the end of middle school, or are they equally
evident even in fifth grade?
METHODS: IGD will invite small teams of girls to experience and critically assess a series of high quality
science-learning experiences diverse in their technology and extent and form of interactivity, ranging from
planetarium show to role play simulated mission to Mars, from CD-ROM games to exploring space science
on the web, television to immersive virtual reality. These young, newly expert technologists will then
design their ideal science learning experience, with the goal of teaching science and inspiring kids to be
interested in SMET. IGD will profile girl reactions to the diverse forms of science learning. The design
process and design outcomes of the all-girl design teams will be analyzed and compared to all-boy teams.
IGD will compare fifth grade girls (whose enthusiasm for science parallels boys) with eighth grade girls
(whose enthusiasm and self confidence in science has declined), looking for similarities and differences in
technology attitudes, design process, and design outcomes. Professional software developers will create
visualizations of each team's prototype. With no indication of the gender of the designers, each set of
visualizations will be shown to same-age students to discover whether boys and girls prefer prototypes
developed by their own gender.
INTELLECTUAL MERIT: IGD will test the assertion that involving girls as designers can impact
design process and product and describe gender and age differences. IGD will contribute concrete
understanding of girls' attitudes toward diverse forms of technology-enhanced science learning.
BROADER IMPACTS: IGD could provide compelling evidence to software developers about the critical
importance of involving girls as designers and ways of enabling girl-friendly design processes. IGC could
provide guidance to teachers and curriculum designers about choosing among technology-enhanced science
learning experiences. The PIs teach graduate design research classes (in education and digital media
design). They will involve their students in the research and integrate findings into their courses. New
understanding about girl-friendly science education designs will be incorporated into the Mars Pioneer
Learning Adventures initiative and into the overall Comm Tech Lab software design process and College
of Education and Digital Media Arts curricula.